RIA: Structural Permeability Tensor of Reconstructed Porous Soil Media

9309345 Muhunthan The objective of this research is to develop a new technique based on simulation, aimed at building models of real porous media. On the basis of measurements of characteristics made using thin sections of porous media at the microstructural level, an artificial medium that has the same average geometric properties as the original medium will be created. The permeability tensor will be obtained by solving the field equation numerically in a sample of three-dimensional reconstructed soil medium. the results will be compared with experimental data. The possibility of determing the permeability tensor by direct observations on thin sections will be also investigated. ***